Transient and Turbulent Fields in Plasmas

Experimental research is being pursued on transient effects dealing with the transport of current and heat pulses in magnetized plasmas and turbulence studies dealing with coherent structures in fluctuating magnetic fields. These processes address fundamental plasma properties which are essential for understanding transport in plasmas, and they are of broad interest in inertial and magnetic fusion, pulsed power, and for active experiments in space plasmas. The proposed work will be performed in a large, controlled laboratory plasma with excellent diagnostic capabilities. Pulsed currents are imposed with electrodes, particle beams and induced by magnetic antennas. The transport of these currents by electromagnetic waves such as kinetic Alfven waves, whistlers and beam modes will be studied. Heat pulses are generated with pulsed, intense rf fields of magnetic antennas. The heat transport in nearly collisionless plasmas cannot be described by classical diffusion models but may involve double layers and non- Maxwellian distributions. Using directional velocity analyzers, emissive electric field probes and vector magnetic field probes moveable in 3 dimensions will yield a detailed picture of fields and particles. Magnetic turbulence will be investigated from the thermal level to that of the ambient field. It is excited by current fluctuations in particle beams forming coherent rf structures at cyclotron harmonic frequencies or by instabilities such as beam-generating whistlers and lower hybrid turbulence in high-beta plasmas. Using conditional averaging, a special statistical technique employing digital oscilloscopes, coherent magnetic structure can be resolved in a turbulent field. Fields and particles in such "islands" will be mapped so as to study transport processes on a microscopic scale. Refined plasma diagnostic tools and techniques will be developed. Such detailed experiments are expected to advance the knowledge of basic plasma properties, have i mplications to the various uses of plasmas, and train students in modern experimental plasma physics.